NYI: High Performance Analog Signal Processing for Mixed-Mode Integrated Circuits

The focus of this research is the development of high performance analog architectures and circuits for mixed analog-digital IC's. Emphasis will be placed on improving the immunity of the analog circuits to digital switching noise and in obtaining high speed and accuracy analog circuit performance with the newly emerging 3.3 Volt power supply standard. Current-mode circuits will be examined as a way of overcoming these limitations and this research will yield a general understanding of the advantages and limitations of current-mode circuits as compared to voltage-mode circuits. The current-mode circuits will be used to implement area efficient, high-order sigma-delta A/D converters.